CAREER: Divergent Transfer Trajectories in Computer Science: A Mixed Methods and Person-Centered Exploration of (In)Equity and Community College Transfer Pathways

This CAREER project will study transfer pathways from community college to CS
majors in the University of California (UC) system to provide the first comprehensive
picture of degree and early career trajectories followed by transfer students in CS.
Community college transfer students represent a high-achieving and often untapped
pool of talented emerging computer scientists. Thus, supporting their success is
essential to growing the CS workforce, and future research is needed to understand
how community college transfer students navigate their CS degree pathways and obtain
success in reaching their educational and professional goals.

This mixed-methods study will rely on longitudinal data in the form of surveys, student
records, and ethnographic interviews, beginning from the time transfer students enter
their UC campus and following them as they matriculate through their CS degree
programs. Specific analyses will be guided by two overarching questions: (1) What
trajectories do community college transfer students follow in their computer science
bachelor’s degree pursuits? (2) How do community college transfer students following
varying degree trajectories describe and make meaning of their experiences?
Person-centered statistical analyses and ethnographic interviews will also explore
variation among transfer students. In particular, this study will add nuance and
complexity in terms of how we understand community college transfer student success,
pushing us to define success beyond traditional metrics (e.g., degree efficiency; four- or
six-year graduation rates, etc.). In doing so, this study will build a more robust
knowledge base that can contribute to efforts to support community college transfer
students as they exercise agency throughout their degree programs and obtain their
professional goals.